Active Visual Depth Perception by Looming

This proposal is a project to measure and model looming responses of cells
in the optic ganglia (primarily the lobula) of the night-flying hawk moth,
Manduca sexta. When the moth hovers in front of a flower to feed, wind
causes the flower to move in the moth's visual field. The experiments
proposed are of two kinds: First, responses to a wide variety of visual
stimuli will be recorded intracellularly as well as extracellularly from
looming neurons in order to test if the trigger for the looming responses
are stimulus changes of luminance, changes of perimeter, or changes due to
visual flow fields. Second, computer models of these neuronal responses
will be constructed and tested with equivalent 'stimuli'. It is planned to
test the models with real images by feeding into the models videos of e.g.
foliage or flowers wiggling in the wind. One very practical future use of
such computer models may be in machine (robot) vision and in neuromorphic
chips.